Calculus Reform Workshops

A series of three Calculus Reform Workshops are being held during the summer of 1992. Each five day workshop has 26 participants and includes the following: - overview of calculus reform projects - extensive participant work with specific reformed approach - experienced curriculum reformers as workshop instructors - participant development of curriculum materials - establishment of support network among participants. The Iowa, Southern California, and New Jersey Sections of the MAA are each hosting a workshop.